The All Nations Louis Stokes Alliance for Minority Participation

The All Nations Louis Stokes Alliance for Minority Participation program (ANLSAMP) is a national Native American initiative that aims to build upon the successes and "lessons learned" from the previous Phase 1 five-year program. The overall goal of this Phase II program is to establish a comprehensive ANLSAMP interactive network designed to increase substantially the quality and quantity of American Indians receiving baccalaureate degrees and graduate degrees in science, mathematics, engineering, and technology (SMET) by:

1) Increasing the number of B.S. degree programs offered in SMET fields at Tribal Colleges from to 2 to 10;
2) Increasing the number of B.S. programs in different SMET disciplines from one to four; and
3) Increasing the graduation rate of Native students with B.S. degrees in SMET fields from 112 to 224.

Through this proposal, the following partnerships will be funded to meet the goals above:
1) TCUs who want to develop an associate degrees in SMET fields;
2) TCUs who want to have associate to bachelor of science degrees in SMET fields; and
3) The development of regional SMET education networks.

Specific goals and objectives will accomplished through four major activities: Management, Networking, Research and Project.

With the inclusion of all Tribal Colleges in this proposal, ANLSAMP will strengthen an already cohesive Tribal College network for SMET education, support the purpose of the Executive Order and enable the management team to leverage other resources more effectively.